Doctoral Dissertation Research in Geography and Regional Science

The difficulty of adequately delimiting boundaries on the basis of deficient geographical knowledge is an acknowledged fact. A number of considerations must be made in studies of the simultaneous mapping of a boundary by two different agencies, raising the issues of the authority of maps, the relationship between ground truth and interpretation, and objective reality versus subjective elements in mapping. This project will address the role of maps and cartography in the original U.S.-Mexican Boundary Survey of 1849-1855. Cartographic documents have been largely overlooked while most research interest has centered on the general political and cultural history of the boundary. A comparative analysis of cartographic and manuscript archives in both Washington, D.C. and Mexico City will form the basis of the research plan. Maps produced by the two boundary commissions and the commentaries on the mapping process in the reports of the commissioners will be compared for information bearing on the role of maps in the making of the U.S.-Mexico boundary. Analysis should indicate the approach of each commission to the boundary- making task as well as determine each commission's methods of dealing with specific geographical problems. This research should contribute toward redressing an imbalance in borderland studies by examining the Mexican contribution to the boundary issues involved. It will also examine the role of an abstraction, the map, in the representation of reality, a political boundary. Finally, the research will assess the potential of maps in boundary-making in general and on our present understanding of international boundary issues.